Probing the Earth's Core and Lowermost Mantle

The Earth's core plays an important role in the formation and
chemical differentiation of our planet, in global earth dynamics
and earth rotation, and in the generation of the magnetic field.
This project focuses on three related objectives, concerning the
seismic imaging of the structure and rotation of the inner core and
the heterogeneity of the the lowermost mantle. (1) To constrain the
inner core rotation using fixed earthquake-station paths, which reduces
biases from unmodeled mantle heterogeneities and source mislocation.
The project will search for time-dependence of PKP(BC)-PKP(DF) differential
times and PKP(CD)-PKP(DF) differential times. Considerable effort
will also be made to address uncertainties in determining inner
core rotation, in particular errors from potential systematic
event mislocation. (2) To model and invert for 3D anisotropic
inner core structure using PKP waveforms and differential times.
The project will test the recent proposal of a distinct innermost
inner core and examine the sharpness and lateral variation of the inner
core transition zone from the relatively isotropic upper inner core
to strong anisotropy in the lower inner core. (3) To map the
heterogeneity of the lowermost mantle from the PKP data collected,
in particular, the Central Pacific core-mantle boundary anomaly
using abundant PKP samples from the earthquakes and
stations in South America and east Asia.